Conference: 2nd Biennial Workshop in Mouse Neurogenetics, The Jackson Laboratory, Bar Harbor, Maine: September 18 thru 22, 1996

9602475 Frankel This proposal for a workshop is to bring together workers in the rapidly changing field of mouse molecular neurogenetics. The emphasis will be on developmental mechanisms, and will bring together workers experienced in the field, new researchers, and students. The laboratory mouse is one of the premier experimental animals for molecular studies of the processes of neural development . This will be the second such biennial meeting and will provide the latest information concerning targeted mutation, genetic fine-mapping, positional cloning, quantitative trait analysis, and sequencing and expression of cloned genes.